Meeting: Keystone Symposia on "Plant Signaling: Dynamic Properties" to be held in Breckenridge, CO from February 5-10, 2014

The Keystone Symposia Conference on "Plant Signaling: Dynamic Properties" will focus on the relationship between signaling events at the molecular level and their higher order behavior, e.g. the integrated response of the cell or organism. The properties of signaling systems will be compared in diverse organisms, including non-plant examples, emphasizing interdisciplinary approaches that include mathematics, computation and synthetic biology. This conference has the goals of 1) fostering a community of researchers interested in elucidating the emergent properties of plant signaling behaviors 2) helping develop the vocabulary and concepts necessary to understand emergent signaling behaviors 3) providing a forum for discussion of the future directions of this field, particularly with respect to its predictive power and translational potential and 4) generating an interactive forum that engages new investigators and provides opportunities to highlight their research. Broader Impacts. This conference will acquaint new trainees and investigators with recent developments in the field, and provide opportunities to present their research and interact with leading investigators. The conference will broaden participation (including by members of underrepresented groups) in this emerging field of research. This award is supported jointly by the Divisions of Molecular and Cellular Biosciences (Cellular Dynamics and Function Cluster) and Integrative Organismal Systems (Symbiosis, Defense and Self-Recognition Program)